Three Dimensional Modeling of Core-Collapse Supernovae

Core-collapse supernovae dramatically announce the death of massive stars
and the birth of neutron stars, pulsars, and black holes. They are the
sites where most of the heavy elements of Nature are created. Viewed as a
nuclear physics laboratory, core-collapse supernovae produce some of the
highest densities and energies in the Universe, and during this violent
process a combination of nuclear physics, turbulent hydrodynamics,
radiation transport, and neutrino physics determines whether and how the
star explodes. However, to date the puzzle of the precise mechanism of
explosion has not been cracked. A thesis of this team is that a
fundamental impediment to progress over the last few decades may have been
the lack of access to codes, computers, and resources with which to
properly simulate the collapse phenomenon. This could explain the
agonizingly slow march since the 1960's towards demonstrating a robust
mechanism of explosion. However, with the state-of-the-art computer code
this team has recently developed, the time may now be ripe to make a final
assault on this central problem in astrophysics. Going to fully
three-dimensional neutrino radiation-hydrodynamics and employing the best
neutrino and nuclear physics may together be the keys to demonstrating and
understanding the generic core-collapse supernova explosion mechanism.
Since these supernova simulations lend themselves easily to public and
school outreach, the team plans to generate video products for public
talks and web-based distribution.

Core-collapse supernovae probe the nuclear and particle physics of matter
at super-nuclear density, high temperature, and at extremes of isospin.
This project supports the experimental nuclear physics program of the NSF
by exploring nucleosynthesis in astrophysical explosions, the properties
of the neutrino, and the equation of state of nuclear matter. The
numerical simulations connect directly with the lower-energy programs of
FRIB and FAIR, the high-energy experiments carried out at RHIC and the
LHC, and the hyperon-hyperon and hyperon-nucleon programs of JPARC, GSI,
JLAB, and NICA. In addition, a solution to the core-collapse supernova
problem will benefit ongoing efforts of observers and instrument
designers in the U.S. and around the world engaged in projects to
determine the origin of the elements, measure gravitational waves (LIGO),
and interpret laboratory nuclear reaction rate measurements in light of
stellar nucleosynthesis.